Instrumentation for a Wind Tunnel

This project improves on this institution's already existing wind tunnel laboratory setup. Undergraduate students using this enhanced lab gain experience with leading-edge aerodynamic measurement techniques. The enhanced wind tunnel laboratory includes a sting balance, a two- dimensional traversing mechanism, a Scanivalve pressure scanner and synchro transmitter-slipring unit. This equipment is interfaced to computers permitting students to study external flow phenomena associated with stationary or rotating objects. This award is being matched by an equal sum from the grantee.